Intelligent Assistant for Simulation Model Generation from IDEF3 Process Descriptions

Recent advances in the area of simulation modeling have focused on improving simulation modeling languages. These advances have addressed the semantic gap between simulation model design and an executable simulation program. They represent important advances for improving the productivity of simulation modelers but do little to aid the non-simulation trained decision maker. The objective of this research is to advance the state of the art of the actual simulation model design. The goals are to: 1) reduce the dependency of domain experts on simulation analysts, 2) assist experienced systems analysts, 3) facilitate effective communication between experts and analysts, and, 4) accurately translate system design goals and objectives to executable simulation code.